Scientific Computing Research Environments for the Mathematical Sciences

Scientific Computing Research Environments
for the Mathematical Sciences (DMS-0532160)

Co-PIs: M. Holmes, D. Schwendeman, J. Mitchell and E. Giladi
Department of Mathematical Sciences, Rensselaer Polytechnic Institute

This project involves the purchase and use of a high-speed multiprocessor computing cluster to:
1. Enable computationally intensive research projects to address complex mathematical modeling
and optimization issues, including, in particular, multi-scale problems arising in the
study of chemically reacting flows, mathematical biology, numerical optimization, and wave
scattering.
2. Significantly enhance graduate computational courses in the Mathematical Sciences at Rensselaer
and expand our continuing efforts to attract women and other under-represented groups
into our research programs.
The proposed equipment will benefit our research projects in several ways. The equipment will (i)
enable us to proceed with our research efforts directed towards the development and testing of new
numerical methods using parallel computing, (ii) open up new areas for research for our graduate
students, and (iii) be essential for running production codes already working on our smaller four
processor system. These new avenues of research will strengthen our graduate student education
and career development in computational mathematics, and will become the basis for outreach
activities such as REUs (Research Experiences for Undergraduates).
The specific projects for which the cluster will have immediate impact involve: the development
of adaptive mesh refinement methods on composite overlapping grids for multiscale simulations of
chemically reacting flows in exploding and detonating media; the computational modeling of the
nonlinear, three-dimensional, electromechanical processes responsible for transduction of sound
in the cochlea; the development of parallel algorithms based on polyhedral and non-polyhedral
cutting plane methods for solving large-scale semidefinite and integer programming problems; and
the development of hybrid asymptotic-numeric algorithms for solving scattering problems from
complex realistic three-dimensional objects, in the mid frequency regime. On a broader level, the
computing cluster will provide us with the ability to develop scalable algorithms that are essential for
analyzing certain complex mathematical problems that arise in science and engineering applications,
and it will provide us with a computational laboratory that will serve as an invaluable resource
for the preparation and computational experience of our students and post-docs. As a result, the
broader impact of the computing cluster will be as a tool used in the career development of our
students and post-docs, the dissemination of the new results of our computational research through
publications and talks, and the development of new interdisciplinary collaborations.